Sensor Fabrication by Enzyme Entrapment in Polymer Films at Electrode Surface

The intent of this proposal is to address critical issues concerning the commercialization of enzyme electrode technology by carrying out research into electrodes modified with enzyme/ion exchange polymer films. A basic understanding of the factors that affect the characteristics of this type of enzyme electrode is also sought. The proposed research will seek to assess the relative merits of different types of ion-exchangers for enzyme electrode design, and will develop new techniques for achieving electrical communication between immobilized enzymes and electrodes.